Nonlinear Beam Dynamics In Accelerators

Research is proposed that has the potential to enhance the performance of accelerators. The topics are related to the interactions of accelerator beams in colliders, optimizations of storage rings, beam size growth and particle loss, and improvements in beam-dynamics calculations.